University of Illinois Teacher Enhancement Project in Statistics Education

By introducing teachers to an empirical approach to statistics, this three-year project will facilitate the teaching of statistics in middle and secondary schools. A total of 150 teachers of mathematics, science, and computer science will participate in a three-week summer workshop in statistics and in follow-up activities during the academic year. Evaluation will assess the project's success in introducing statistics into the curriculum at the classroom and the district level. The project builds upon inservice workshops that were funded by the State of Illinois. Although based upon a high-school level statistics text (with accompanying software) that was written by the PI's, the workshops will familiarize participants with a variety of approaches to the teaching of statistics. There will be one workshop for 30 teachers in the first summer and two in each of the following two summers. Each of the five workshops will recruit from a particular region of the United States, and teachers will participate in "teams" of 2-4 superior teachers, depending on the size of the school. Each team will also include a supervisor or administrator, and must contain at least one senior teacher. The schools must agree to provide funds and other support for introducing statistics into the curriculum. Cost-sharing contributed by the university, the participants' schools, and the publisher amounts to 32% of the NSF award.